NSF Young Investigator

9357207 Saleur This NYI award will support the research of a promising and accomplished young investigator. His research will include a study of two-dimensional field theory and problems in statistical mechanics, with applications to the theory of condensed matter. ***